Workshop on "Large Scale Computational Device Modeling"

Large-scale computational problems assume increasing significance in the attempt to obtain accurate models for electron devices. The increasing need of supercomputing in device modeling is caused in part by the miniaturization (submicron very large scale integration) and sophistication (the use of lattice matched III-V compounds in optoelectronics) of electron devices. The computational methods are numerous, including ensemble Monte Carlo simulations based on highly sophisticated solid state theory and two-dimensional and three-dimensional device models which take into account transient phenomena such as ballistic (overshoot) transport. A workshop is being organized and conducted; the participants and organizers will discuss and define the most important areas of electron-device modeling which can profit significantly from the use of supercomputers.